NSF-CGP Fellowship: Non Adiabatic Processes and Electron Correlation in Low Dimensional Systems

9731220 Friedman This award provides funds to support a twelve-month research visit by Dr. Barry Friedman, Department of Physics, Sam Houston State University, for collaboration with Dr. Shuji Abe, Fundamental Physics Section, Electrotechnical Laboratory (ETL), Tsukuba, Japan. The collaborators will conduct research to better understand non adiabatic processes in low dimensional systems. Surface hopping methods have been developed which allow one to incorporate the effects of non adiabatic processes in molecular dynamics simulations. The collaborators will use these non adiabatic molecular dynamics techniques to study pi electron systems. The particular systems include photo induced charge transfer in conducting polymer C60 composites and the photo induced conformation change of the visual pigment rhodopsin. Both of these systems are important due to their intrinsic physical and biophysical interest and from the standpoint of possible technological application. Dr. Shuji Abe and his team at ETL are experts on the photo physical processes in conducting polymers and fullerenes, while Dr. Friedman has gained expertise in the use of non adiabatic molecular dynamics. Although adiabatic molecular dynamics has been widely applied to pi electron systems, the simulation of non adiabatic processes is relatively unexplored. Non adiabatic processes are important in these systems, but they have been neglected due to the former lack of computational tools. The collaborators expect the research to be very fruitful because it will combine the ETL team's knowledge with Dr. Friedman's experience with non adiabatic molecular dynamics. This project is supported under the Science Fellowship Program between the National Science Foundation and the Japan Foundation Center for Global Partnership. ***